Collaborative Research: Science Management for the Arctic System Science's Ocean-Atmosphere-Ice Interaction (OAII) Component

ABSTRACT This is a joint proposal to support the Ocean-Atmosphere-Ice Interactions (OAII) Science Management Office (SMO) and Science Steering Committee (SSC). The SMO will be located at ODU and the chair of the SSC will be at UT. The SMO will support the activities of the OAII SSC (e.g. workshops, planning meetings, and coordination with international science projects), publish a newsletter, promote correspondence of OAII results at national meetings and between PIs, facilitate logistical arrangements, and promote integration of OAII activities with other components of the Arctic System Science (ARCSS) Program. The SSC will conduct planning meetings for future OAII science projects, appoint working groups to conduct workshops for development of science plans for new initiatives, and provide the ARCSS Program with an assessment on priorities for OAII global change initiatives/projects in the Arctic that are developed through the workshops.